The Fifth International Symposium on Robotics Research

This grant provides airfare for fifteen U.S. scientists to attend the Fifth International Symposium on Robotics Research in Tokyo, Japan. ISSR is a high-quality conference that rotates between the U.S., Japan, and Western Europe, and is an effective means of initiating collaboratory research and exchange visits. The call for papers was open this year in order to broaden participation. Airfare awards will be distributed among authors of top-ranked papers who lack travel funds, plus one or two distinguished attendees invited by the Editorial Advisory Board of the International Journal of Robotics Research. The symposium will be conducted in a single track to facilitate cross-disciplinary interchange, and recipients of travel grants will contribute to a summary report and a description of visited research facilities.